CAREER: GAIA: A Self-organizing, Self-healing Network Infrastructure

Ben Zhao
University of California, Santa Barbara
0546216
Abstract

The future of Internet-scale applications relies on securely connecting
distributed resources such as corporate data centers, video-conferencing
sites, and distributed web caches.
Unfortunately, today's Internet is extremely inhospitable for distributed
applications. New viruses and worms are discovered on a daily basis, and
constantly threaten to compromise end hosts by exploiting software and
network vulnerabilities. Meanwhile, administrators
are in a constant race to secure machines before they are compromised.

The objective of this project is to investigate the design and deployment of
a self-healing network infrastructure that allows distributed applications to
survive in this environment by maintaining availability while resisting
attacks from compromised internal hosts and external attackers. The project
focuses on both proactively avoiding interactions with suspicious network
entities, and reactively detecting and recovering from internal and external
attacks.

Compared to end-host or protocol based approaches, our approach is unique in
trying to maintain long-term application availability despite the assumption
that end hosts are insecure and will be continuously attacked and
compromised. The PI is building the Gaia infrastructure on top of a structured
peer-to-peer overlay and leverage overlay routing for our scalable
communication primitive.